Tailored Microstructures of Inhomogeneous Composite Materials for Very Thin Optoelectronic Devices

A previous study indicated that thin films of Ag-Si and Ag- CuInSe2 composites may be produced with unique optical and good electrical transport properties and they may be used to construct optoelectronic devices with some very unusual properties. Theoretical studies of the Ag-0-Cs S-1 photocathode showed that a "tailored" Ag-0-Cs system could produce a photoelectric quantum yield (PQY) of a few percent at 1.5um, something not realized with presently existing photoemitters. In particular, Ag-polycrystalline Si composites 1um thick have been made with selective absorption peaks at 2.4, 3.0, 3.8, 4.8, 7.2 and l2um with extremely large absorption coefficients (10**3-10**4/cm-+) relative to Si at these wavelengths, in good agreement with a recently formulated dynamic effective medium approximation (DEMA) developed to describe these systems. These composites have measured Hall mobilities of 425cm2/ (volt-sec) are n-type with resistivities varying between 10**6 to 10**-3 ohm-cm depending upon the volume fraction of Ag. The effort here will be to dope these composites with well-defined p- or n- type conductivity to make them useful in constructing very thin optoelectronic devices.